RUI: Processing of Complex Sounds in the Auditory Midbrain

A fundamental function of the auditory system in humans is to process speech. Both
speech sounds and social vocalizations of other animals are complex in that they
are comprised of many frequency elements that vary over time. When these sounds
are first encoded by the cochlea in the inner ear, they are broken down into their
individual frequency elements and single neurons respond to individual
frequency elements. However, to enable perception of the whole sound, neurons in
the auditory system must recombine the individual frequency elements in the
appropriate temporal order. In other words, individual neurons must integrate
multiple frequency elements over time. The first site in the ascending auditory
system where individual neurons integrate across frequency elements in complex
sounds is the inferior colliculus (IC). The objective of this research is to determine
the role of frequency and temporal integration in encoding complex sounds in the IC.
In this project, responses of individual neurons in the IC to spectrally and temporally
complex sounds, including natural vocalizations, will be obtained. The project focuses
on characterizing neuronal responses that display nonlinear interactions to the
combination of two sounds with energy in different frequency bands. The project then
examines how these "combination-sensitive" neurons encode natural sounds by
presenting natural mouse vocalizations. Neural responses elicited by the entire
vocalization, individual frequency elements and combinations of elements with different
temporal relationships will be compared. The hypothesis tested is that neurons in the
mouse IC show nonlinear frequency interactions to signals that contain biologically
important frequency elements in the appropriate temporal order, and that these
combination-sensitive interactions are a mechanism for encoding natural
vocalizations. The strength of this proposal is in utilizing naturally occurring,
biologically relevant vocalizations in an awake mouse model to study neural
mechanisms underlying the processing of complex sounds. Because mouse
vocalizations have similar structures to the vowels of human speech, and
similarities exist between the perception of multi-harmonic communication calls
in mice and humans, this project will be an important step towards identifying
the neural mechanisms of speech processing. The research activities in this
project have an impact beyond the scientific findings. Dr. Portfors has established
a diverse and committed record of educating students and the community. These
activities include engaging minority students through research opportunities,
undergraduate students through integration of research and teaching activities,
and members of the local community through teacher training workshops,
public lectures, and the local media. Dr. Portfors is regularly engaged in
numerous activities outside the laboratory and classroom that have broad
impact on the community. In a typical year, she and her students give
10-20 presentations to schools and community groups. This project will
continue to foster interaction of undergraduate and graduate students in the
laboratory and provide outreach to the community through presentations on
auditory neuroscience.